Mathematical Sciences: Invariant Theory and Algebraic Groups

Schwarz The award supports research in invariant theory and algebraic groups. The principal investigator will study the structure of differential operators on quotient varieties; study the structure of the modules of covariants; and work on part of Fefferman's program of parabolic invariant theory. The research supported involves invariant theory and algebraic groups. In general, invariant theory involves the actions of linear algebraic groups on manifolds or linear spaces and the determination of the mathematical invariants of the space under these group actions. ***